Acquisition of a 300 MHz NMR Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) and Major Research Instrumentation (MRI) Programs, the Department of Chemistry at Montana Tech University will acquire a 300 MHz NMR Spectrometer. This equipment will enhance research on studies of the structural characterization of secondary metabolites from microbes isolated from unique ecological niches; study of organic carbon in the sediments and the identification of changes in the organic matter from the overlying water and with burial depth; the development of electrically conducting polymers for removal of metal ions from aqueous systems; and studies on the structural mechanism of sorption of organic and organo-phosphorus compounds on metal-colloids.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in materials and environmental chemistry.